CAREER: Spatial and Temporal Characterization of Dense Nonaqueous Phase Liquids in Porous Media Using Magnetic Resonance Imaging

Werth 9733428 This is an award to support a project proposed in accord the with Guidelines for Submission of Proposals to the Faculty Early Career Development (CAREER) Program, NSF 97-87. The Principal Investigator's objectives are to conduct research that will assist in determining the effects of interstitial water velocity, pore and nonaqueous phase liquid properties on the characteristics of the effective interfacial region between nonaqueous phase liquids and groundwater, and predict time- dependent dissolution of nonaqueous phase liquids in natural porous groundwater aquifers. He plans on using magnetic resonance imaging to visualize local interstitial velocities, pore dimensions and other behavior characteristics of the interfaces between nonaqueous phase liquids and water to elucidate the mechanisms controlling dissolution of nonaqueous phase liquids. In accord with NSF 97-87, the Principal Investigator plans on integrating the results of his research into classroom instruction using interactive simulation models and case studies. This approach is expected to significantly hasten the transfer of the results of his research from the classroom setting to consideration of its use in engineering design and implementation of systems for solving relevant "real-world" hazardous waste management problems. ***